Attracting Minority Scholars to Ethics and Values Studies in Science and Technology

As the United States becomes a racially more heterogeneous society, the perspectives and experiences of different ethnic groups need to be identified and understood if U.S. ideals of participation and accountability, and social justice and equality are to be maintained. Ethics and Values Studies supports research and educational projects on ethical and value aspects of the interaction between science, technology and society. Projects examine the social values and mutual obligations and responsibilities that arise in these interactions. The first phase of this project, to be undertaken by the American Association for the Advancement of Science with the cooperation of several cosponsoring organizations, consists of a workshop that will introduce minority scholars to research, education and resources in ethics and values studies. Tentatively, the workshop is expected to occur over eight days in the summer of 1991, in or nearby Washington, DC. There will be a national recruitment effort for both faculty and participants. An advisory board, including minority representatives and EVS scholars, will assist project staff throughout the development and assessment of the effort. The workshop will identify research opportunities and acquire more knowledge on the content of minority perspectives on ethical and value aspects of science, technology and society interactions. It will provide participants with the opportunity to define a research and educational agenda for themselves and other EVS scholars, and establish a network of individuals and resources. Phase two of the project will provide further support for workshop participants to undertake followup research and related activities. In this way, the project can make a contribution to defining and understanding ethical and value aspects of the interactions of science and technology with our pluralistic, heterogeneous culture. The investigators, advisory board, and tentative faculty for this project are highly qualified; numerous professional societies and minority organizations have agreed to sponsor it and help recruit appropriate participants; the issues are very important; results will be appropriately disseminated. The project is meritorious and recommended for award.